Source Attribution Methods for Modeling Aquatic Pollution From Non-Point and Atmospheric Sources

9314725 Christensen This is an award to support research to find effective methods for determining the sources of diffuse aquatic pollutants. The investigator plans on developing a chemical mass balance model and factor analysis models for analyzing sedimentary records of pollutants including consideration of errors in both the measured historical record of a substance and its known source functions. The models will be evaluated using existing data sets for sediment-associated deposits of polycyclic aromatic hydrocarbons in existing dated sediment cores and polychlorinated biphenyls in sediments from freshwater Lake Michigan estuaries. In addition, an experimental program will be conducted focusing on polycyclic aromatic hydrocarbons and polychlorinated dibenzo- p-dioxines in Lake Michigan, Green Bay and the lower Fox River of Wisconsin. The goal of this project is to develop source-attribution methods for potential use in management of aquatic water quality. These methods, previously extensively used in characterizing sources of air pollutants, may prove especially effective in dealing with non-point sources of pollution. While point-sources of water pollution are generally readily identifiable, non-point sources such as those attributable to deposition from the atmosphere are not. Results of this research are expected to lead to improved models that can be utilized in engineering design of pollution control facilities and remediation of polluted aquatic resources. ***